Wideband Array Processing for Multiple - Emitter Parameter Estimation

The objective of this research is to improve spatial and temporal sensor arrays that yield increased signal-to-noise ratio. Theoretical research includes modeling signals from multiple emitters, statistically evaluating parameter estimation algorithms, and assessing time-bandwidth interchangability. The array processing applications extend to areas as diverse as radar, sonar, and communications in addition to radio-astronomy and bioengineering.